ROW: Surface Measurements of Quasicrystal Icosahedral Phase Alloys (Materials Research)

Scanning tunneling microscopy/spectroscopy is employed to examine the atomic structure and electronic structure of quasicrystals. The scanning tunneling microscope is incorporated with a surface spectroscopy chamber to allow measurements under nonoxidizing conditions. Atomic structure, local order, work function profiles, and electronic energies of local states are measured.